Postdoctoral Fellowship: MSPRF: On the Use of the Gaussian Measure in Convex Geometry

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Dylan Langharst is “On the Use of the Gaussian Measure in Convex Geometry”. The host institution for the fellowship is Carnegie-Mellon University and the sponsoring scientist is Tomasz Tkocz.